Improvement of Chemistry Curriculum by Addition of Computer Assisted Labs in General Chemistry and Quantitative Analysis

The use of computer for controlling instruments and in the collecting and analyzing of data is an integral part of the chemistry curriculum today and should pervade all levels of a student's experience. The Chemistry Department at Converse College has used the HRM (Human Relations Media) Software: Experiments in Chemistry successfully for the last five year in the upper level Physical Chemistry Laboratory and Instrumental Analysis. The HRM software allow students to collect real-time data using a thermistor probe or electrode, enter it directly into the computer and graphically analyze that data. Because of its success in these laboratories and because the department is committed to the continuing improvement of its curriculum they obtained nine Apple IIe/HRM computer software set-ups to be used in General Chemistry and Quantitative Analysis for the collection and analysis of data. This has extended the use of computer assisted labs into the elementary curriculum where is it used by science and non-science majors alike. The institution has contributed to this project in an amount equal to the NSF funds.